Postdoctoral Fellowship: MSPRF: Geometric Functions and their Applications

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Emily Casey is “Geometric Functions and their Applications”. The host institution for the fellowship is the University of Minnesota - Twin Cities and the sponsoring scientist is Max Engelstein.